Ship Operations - R/V ROBERT GORDON SPROUL

Overview:
Scripps Institution of Oceanography (SIO) proposes to continue operating the research vessel Robert
Gordon Sproul to support NSF-funded scientific research for the five-year period 2018 -2022. Robert
Gordon Sproul is a capable, well-equipped general-purpose Coastal Class research vessel that is owned
by the University of California and has been operated by SIO since the ship's introduction into the US
Academic Research Fleet in 1985. As a large shared-use facility scheduled within the collaborative
framework of the University-National Oceanographic Laboratory System (UNOLS), Robert Gordon
Sproul will host scientists from across the United States to undertake research in a variety of disciplines.
The ship will be operated in a manner that promotes safety, capability and efficiency in order to
maximize NSF's investment in the ship and in programs that are conducted on board. SIO employs a
disciplined approach to vessel maintenance, regulatory compliance, foreign clearance, crewing and
logistics so that scientific missions can be completed successfully and on schedule.

Intellectual Merit:
The observation, measurement, and collection of samples and data are accomplished on the US West
Coast by scientific missions aboard Robert Gordon Sproul. SIO-operated ships have played a critical role
in the exploration of our planet since 1907, and continue to contribute significantly to the U.S. ocean
research effort. SIO's ship operations department supports NSF core values of scientific excellence,
organizational excellence, learning, inclusiveness and accountability. The vessel management and
operations proposed here enable transformative scientific research in physical and biological processes in
the natural environment upon which human well-being depends. The intellectual merit of this proposal is
amplified by the combined merit of research projects undertaken by scientists on board. Robert Gordon
Sproul is currently scheduled to conduct three different NSF-sponsored programs in 2018 in benthic
ecology, ocean chemistry, paleoceanography, marine ecology, and ocean instrument research and
development. Each scientific program contributes its own distinctive intellectual merit. NSF-sponsored
projects as currently scheduled will account for 20% (10 days) of Robert Gordon Sproul's work this year.
The remainder of the work will be supported by the Scripps Institution of Oceanography (28 days, 54%),
the Navy (12 days, 24 %), and NOAA (1 day, 2%).

SIO's management of Robert Gordon Sproul enables research, education and training that advance
discovery and understanding while achieving far-reaching broader impacts. The proposed management
supports strongly collaborative, multi-disciplinary and multi-institutional use of the vessel. Through
UNOLS, SIO coordinates the shared use of Robert Gordon Sproul with scientists and funding agencies so
shipboard capabilities meet the current and anticipated needs of the community. SIO is committed to
promoting a climate of fairness, cooperation, and professionalism on board that embraces diversity,
equity, and inclusion as essential ingredients of discovery, technical development, and learning. SIO's
operation of Robert Gordon Sproul leverages institutional programs that complement NSF's mission to
promote achievement and progress in science, engineering and education for the benefit of the nation. For
example, SIO's UC Ship Funds Program enables graduate and undergraduate students, postdoctoral
researchers and early career faculty to pursue independent research and instruction aboard Robert Gordon
Sproul via an internal peer-reviewed competitive process for ship time. The vessel is integral to SIO's K-
12 education program. In the Footsteps of Robert Gordon Sproul, which uses oceanography to teach
physical science to economically disadvantaged seventh- and eighth-grade students. As a broadly subscribed
shared-use facility, Robert Gordon Sproul similarly contributes to the education, training and
outreach missions of scientists from institutions across America who conduct their research and
educational programs on board. As proposed here, Robert Gordon Sproul will continue to serve NSF by
safely, capably and efficiently facilitating multi-disciplinary scientific research to advance our
understanding of our oceans and Earth.

The Statement of Merit Review
This proposal supports peer-reviewed science through NSF evaluation process. The renewal of this cooperative agreement included an external review panel.